The Structured Use of Space and Movement in a Visual-Manual Language

This research project continues work on some specific aspects of the structure, psycholinguistics, and neurolinguistics of sign language. It includes exploring the interplay between linguistic structure and perceptual processes through cross-sign language studies, comparing effects in American Sign Language and Chinese Sign Language; the neurological control of language and movement through detailed analysis of the breakdown of both in signers with neurological motor disorders; and hemispheric specialization for language in the brains of normal signers with respect to particularly distrinctive attributes of American Sign Language.